CAREER: Reliable Peer-to-Peer Data Preservation

TITLE: CAREER: Reliable Peer-to-Peer Data Preservation
INSTITUTION: Harvard University
PRINCIPAL INVESTIGATOR: Roussopoulos, Mema
PROPOSAL NUMBER: CNS-0447075

ABSTRACT FOR AWARD:
The amount and variety of content being published online is growing at an exceptional rate. Online publishing enables content to reach a much larger audience than paper publishing but offers no guarantee of long-term access to the content. This work investigates techniques for building a large, reliable peer-to-peer system for the preservation of online published material. The system consists of a large number of low-cost, persistent web caches (peers) that cooperate to detect and repair damage by voting in "opinion polls" on the content of their cached documents. The peers are autonomous and mutually suspicious. Project activities include: 1) investigating defenses against adversaries whose goal is to modify content without detection or to disrupt the preservation process; 2) performing a foundational study of the interconnections between identity, trust, and reputation models in peer-to-peer systems; and 3) developing, analyzing, implementing, and testing new protocols that address the high frequency of updates of online government documents, the large volumes of scientific data, and the privacy concerns of sensitive medical data. This work is being evaluated using a real testbed being deployed at 100 libraries around the world with the support of publishers representing over 2000 titles. The broader impact of the work is that all electronic material preserved through the system including academic journals, government documents, and scientific and medical data will remain accessible to generations of citizens. An important component involves the development of new courses that incorporate this research and the development of the Women in Computer Science Organization at Harvard.